US-France (INRIA) Cooperative Research: Semantics Driven Compiler Synthesis

This award will support collaborative research in computer science between Dr. David Schmidt, Kansas State University, and Dr. Daniel Le Metayer, French National Institute for Computer Science and Automation (INRIA), in Rennes, France. The project addresses the problem of analysis and efficient compilation of functional programming languages. Research at KSU has focused on automated transformation techniques for implementing languages defined by denotational semantics definitions. The emphasis has been on using the data typing information of a program's denotation to transform the expression that represents the denotation into an easily implementable form. Work by the INRIA group at Rennes has focused upon the application of transformation techniques for the compilation of functional programs. A methodology has been developed for the time and space-complexity analysis of functional programs, which has been implemented in the framework of a European ESPRIT project. In this collaborative project, the KSU group wishes to benefit from the expertise of INRIA in compiler-oriented program transfor- mations, in particular in the formation of abstract interpre- tations of language definitions. Since type inference is just a simple-minded form of abstract interpretation, and since some abstract interpretations can be coded as type inference problems, significant gains will be made, once the KSU group learns how to adapt its type inference-bases analysis method to describe both storage sharing analysis and other general abstract interpretation-based analyses. This award will fund the travel of Dr. Schmidt and his postdoc- toral to INRIA to carry out this research.